Gordon Research Conferences: Temperature Stresses in Plants; Oxnard, CA; January 2-6, 1989

The objective of this Gordon Research Conference is to foster the interaction of scientists from various disciplines on temperature stresses. The program includes sessions on: role of membranes, biology of cell surface, cryobiology, temperature responses of pollen and seeds, high temperature plant responses, functions of heat shock proteins, ice nucleation, and biotechnology and molecular genetics. A unique feature of the Gordon Research Conference is the free and uninhibited exchange of information between scientists of many disciplines. Two previous Gordon Conferences on this topic were highly successful in fostering communication and promoting cooperative interdisciplinary research among scientists in industry, academic institutions and federal agencies. At present there is no comparable forum for the intensive, wide ranging and productive interdisciplinary exchange of relevant information and ideas. The area of temperature stress in plants represents one of the most important factors affecting crops world wide. It is also one of the most advanced areas in plant biotechnology. Thus, this conference addresses not only one of the most important aspects affecting plant growth and agriculture, but also an area where scientific advances are at the forefront of biology. This conference is the only one on this topic that is held regularly.